FRG Collaborative Proposal: Eigenfunctions of the Laplacian

Collaborative proposal DMS 0354386/0354539/0354668
PIs: C.Sogge, S.Zelditch (Johns Hopkins)/D.Tataru, M.Zworski
(U California, Berkeley)/H.Smith (U Washington)

Title: Eigenfunctions of the Laplacian

ABSTRACT

This proposal is concerned with estimates of solutions of wave
equations on (both compact and non-compact) Riemannian manifolds,
possibly with boundary. We are interested in how the
geometry, the boundary and the regularity of the metric influence
certain basic estimates. Problems of this kind arise both in the
study of local and global existence of solutions of nonlinear wave
equations and in the study of eigenfunctions of Laplacians in
quantum chaos. Although these topics are widely separated in their
physical origins, the relevant mathematics is closely related and
the techniques and insights in the two areas cross fertilize in
a fruitful way. Each of the PIs is an expert one of these areas.
By pooling our knowledge through a FRG grant we shall be able to
make significant progress in these fields as well
as possibly in related ones such as general relativity theory.

Eigenfunctions are the building blocks of functions. Understanding
their basic size and concentration properties helps us solve new
differential equations. In the other direction, techniques from
the study of nonlinear wave equations have recently been used
to prove new results about eigenfunctions. This proposal is
about continuing this cross-fertilization of related fields.